CyberAI SFS: Building an AI-Integrated Cybersecurity Workforce

The CyberAI Scholarship for Service (SFS) program at the University of Texas at El Paso (UTEP) will prepare the next generation of government cyber defenders with both artificial intelligence (AI) and cybersecurity competencies for government organizations. The program will equip scholars with integrated competencies in AI, cybersecurity, and cyber defense, with emphasis on emerging threats enabled by AI. Building on more than a decade of SFS program success, the program directly responds to growing federal workforce needs in AI and cybersecurity.

The project will support scholars across multiple academic pathways, including an accelerated dual-degree pathway leading to a Bachelor of Science in Computer Science with a concentration in Secure Cyber Systems and a Master of Science in Artificial Intelligence; a Master of Science in Artificial Intelligence specializing in AI-enabled cybersecurity; and a Ph.D. in Computer Science with research focused on secure AI systems. Scholars will complete a rigorous curriculum spanning adversarial machine learning, ethical hacking, software reverse engineering, quantum information science, and AI-driven threat analysis. Scholars will also conduct mentored applied research through UTEP’s Institute for Applied AI Innovation and National Security Institute (NSI), which runs a classified research environment. Outreach activities will extend AI and cybersecurity awareness to K–12 students and educators in the El Paso region and beyond, helping cultivate a long-term national CyberAI workforce pipeline.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.